Scholarship for service in information assurance

This scholarship for service proposal supports three 2-year cohorts of students, 15 undergraduate and 10 graduate students. The program is based upon a strong information assurance curriculum in place combined with extensive faculty interaction with the scholarship students. Students will be closely monitored and mentored to ensure that their education meets the goals of the program to produce highly qualified federal employees in information assurance.